Scholarships for Computer Science, Engineering, and Mathematics Majors

This project provides funds for computer science, engineering, and mathematics majors. It includes collaboration between a university and community college to recruit talented community college students to complete technical degrees at the four year institution. This program provides scholarships to increase the number of talented, but financially disadvantaged students, graduating and entering the workforce in the defined technology areas. The project provides professional development programs to facilitate experiential learning through industrial internships, academic progress monitoring and mentoring programs for students. These are established ongoing programs. This scholarship program aims to increase educational opportunities for qualified students, improve retention to degree by removing financial barriers, and provide improved student professional development.